Symposium on Modular Representation Theory of Finite Groups, May 8-15, 1998

Collins 9804881

This award supports a conference on "Moduar Representations of Finite Groups"
at the University of Virginia. The conference will have two parts: The first will consist of three mini lecture series and the second will have eight lectures. Efforts have been made to
include graduate students and young investigators . There